Research Experiences for Undergraduates in Chemistry at California State University, Los Angeles

Through this award, the Chemistry Division provides continued support to a Research Experiences for Undergraduates (REU) site in the Chemistry and Biochemistry Department, California State University-Los Angeles, directed by Dr. Anthony Fratiello. The 10 participants will be recruited from local community colleges, particularly those with large minority enrollments. The students select research topics from several areas of chemistry, including inorganic and organic synthesis, electron spin resonance, nuclear magnetic resonance, infrared and laser Raman spectroscopies, enzyme kinetics, organic electrochemistry, lipid biochemistry, carborane chemistry and capillary electrophoresis. At the end of the program, students present their findings in seminars and written reports.